Cardinal Invariants and Descriptive Set Theory

Abstract

Award: DMS-0300201
Principal Investigator: Jindrich Zapletal

The principal investigator plans to work on the connections between
the theory of cardinal invariants and descriptive set theory, two
subfields of set theory. The central idea in the field of cardinal
invariants is to assign cardinal numbers to various Borel (that is,
suitably definable) structures on the real line or similar spaces.
The comparison of these cardinal numbers provides a way to measure
differences between distinct Borel structures, and the principal
investigator has developed a method for comparing many of these
cardinal numbers. It turns out that the comparison of cardinal
numbers frequently translates back to natural Borel questions about the
Borel structures, without loss of information. Questions to be studied
under this grant include the extension of the syntactically defined
class of problems for which the technique sketched above works; the
relevance of large cardinal axioms to the translation method; particular
cases of Borel structures arising in dynamical systems or in the study
of Borel equivalence relations, and a duality that relates these results
to a method recently found by W. Hugh Woodin.

Ordinary cardinal numbers are used for counting, i.e., for comparing
the sizes of collections of objects. For more than one hundred years
mathematicians have had a version of cardinal numbers for infinite
sets, beginning with the notion of comparison: if two sets A and B can
be put into a one-to-one correspondence then we say that A and B have
the same cardinality. From this point of view the set of natural
numbers {1, 2, 3, ...} and its subset of even natural numbers {2, 4,
6, ...} have the same cardinality (size) since multiplication by 2
gives a one-to-one correspondence from the first set to the second
one. Both of these sets are infinite, i.e. larger than any finite
set, and one of the key steps in the development of logic and set
theory was the realization by Georg Cantor that the set of real
numbers is definitely of a larger cardinality than the set of natural
numbers. Modern set theory has developed notions and tools for
working with sets of larger cardinality than the real line, and
these tools are becoming useful in exploring constructions and
properties that arise in dynamical systems and measure theory.